Research on Layout and Logic Design

The proposed research is on layout driven synthesis, i.e. the intersection of logic synthesis and physical design. The focus is on restructuring logic networks in synthesized digital systems. Four topics, which meet the goals of improving routing efficiency or power consumption, are being investigated. These are: 1) Incremental logic resynthesis to control wiring, 2) Coupling wiring with logic restructuring and finding optimizations to eliminate wiring overflows. 3) Use of generalized Reed-Muller forms to analyze logic as an aid to: - designing cell libraries and for technology mapping, - developing new multi level optimization techniques, - designing networks of provably good testability. 4) Develop new methods for power optimization, at the technology independent and technology dependent levels in logic synthesis, and also find better routing tools to handle power constraints.